Theoretical Studies of Electroweak and Hadronic Interactions

9307980 Repko Research in theoretical elementary particle physics will be concerned with studying the interactions among the carriers of the weak nuclear force. These forces can be probed at high energy collisions at facilities such as the Superconducting Super Collider. The research will be important for an elucidation of the origin of weak nuclear forces. ***